Workshop on Hyperbolic Geometry

Abstract

Award: DMS-0533519
Principal Investigator: Yair Minsky

A workshop on "Hyperbolic Geometry" will take place at the Fields
Institute in Toronto, Ontario on May 23-27, 2006. The workshop
is associated to the winter program at the Institute on
"Holomorphic Dynamics, Laminations, and Hyperbolic Geometry" and
will focus on the assimilation of recent advances in hyperbolic
geometry and 3-manifolds, the consolidation of new techniques,
and the forging of new directions and connections with related
fields. Hyperbolic geometry and the study of 3-manifolds have
arrived at a crucial juncture due to Perelman's results on
Thurston's Uniformization Conjecture and the solutions of other
important problems including the Tameness Conjecture, the Ending
Lamination Conjecture, and the Ahlfors Measure Conjecture.

This award will support U.S. participants, especially junior
researchers, in a workshop at an international research center.
The topic of the workshop, hyperbolic geometry, has its roots
in the 19th century search for geometries that satisfy all of
Euclid's axioms but the Parallel Postulate, and has turned out
to be a critically important structure for 2- and 3-dimensional
spaces. More information on the workshop and its parent program
at the Fields Institute is available at
http://www.fields.toronto.edu/programs/scientific/05-06/holodynamics/.